The First International Workshop on Chemosensory Function and Coding in Insects; Einsieldeln, Switzerland; July 10-13,1989

The chemosensory functions of taste and smell are particularly important for many insects to use for finding appropriate food, mates, or sites for egg deposition. Insects provide relatively simple systems for examining the molecular basis for stimulant binding to receptors, and how nerve cells code information for the brain to control behavioral responses. This workshop will exchange information and techniques for addressing insect chemosensory mechanisms. The emphasis is on discussion of ideas and experimental analysis of chemoreceptor biochemistry, physiology, and coding; and of new techniques, including computer processing of data as well as some standardization to allow easy communication of information among investigators who are widely distributed around the world. This conference is unique, the first international workshop specifically addressed to chemosensory function in insects. Because of their relation to plants, insects are very important to world ecology and world agriculture. The increased understanding from this workshop, of why insects eat or lay eggs on some plants but not others, will have substantial impact on ecology and insect biology, as well as on chemosensory science.